Oceanographic Instrumentation

The Chesapeake Bay Institute of Johns Hopkins University has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V RIDGLEY WARFIELD, a research vessel owned and operated by the University. A substantial part of the ship's operating schedule during 1988 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -shipboard computer components for upgrading the SAIL data acquisition and data logging system, and -several oceanographic and meteorological sensors for collecting scientific data. The instrumentation described above will increase the capability of the University to support NSF-sponsored research and engineering projects.